The Establishment of an Undergraduate, Real-time, Embedded System Software and Interfacing Laboratory

This project establishes an integrated laboratory to support instruction in three areas. They are: (1) Development of software that must function in a real-time, embedded system environment; (2) The interfacing of embedded computers to their external environment; and (3) The relationship between embedded systems and the external environment. The laboratory will consist of six Motorola VME-10 microcomputers that can be interconnected and/or networked through individual serial or parallel devices or through an IEEE-488 bus. The VME-10 computers will be used both singly and in combination to control plants simulated by COMDYNA analog computers.